Developing a Model of STEM-Focused Elementary Schools (eSTEM)

In the United States (U.S.) certain groups are persistently underrepresented in science, technology, engineering, and mathematics (STEM) education and careers, especially Blacks, Hispanics, and low-income students who disproportionately fall out of the high-achieving group in K-12 education. Policymakers argue that future STEM workforce needs will only be met if there is broader diversity participating in STEM education and careers. Recent reports have suggested that the nation would benefit from more STEM-focused schools, including at the elementary school level, to inspire interest and prepare students for future STEM endeavors. However, there is currently little information on the number and quality of elementary STEM (eSTEM) schools and the extent to which underrepresented groups have access to them. This project will study five elementary STEM schools from across the U.S. that are inclusive of students from underrepresented groups in order to determine what defines these schools. The project team, which includes investigators from SRI International and George Mason University, initially identified twenty candidate critical components that define inclusive STEM-focused elementary schools and will refine and further clarify the critical components through the research study. The resulting research products could support the development of future eSTEM schools and research on their effectiveness.

The Discovery Research K-12 (DRK-12) program seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This Exploratory Learning Strand project will use an iterative case study replication design to study the design and implementation of five exemplary eSTEM schools with the goal of developing a logic model that highlights the commonalities in core components and target outcomes across the schools, despite the different school contexts. A framework of twenty design components, taken from research on inclusive STEM high schools and research on successful elementary schools, will inform the data collection, analysis, and logic model development. Schools as critical cases will be selected through a nomination process by experts, followed by screening and categorization according to key design components. School documents and public database information, a school survey, and telephone interviews with school administrators will inform screening and selection of candidate schools. Researchers will then conduct multi-day, on-site visitations to each selected school, collecting data from classroom observations, interviews with students, focus groups with teachers and administrators, and discussions with critical members of the school community. The project is also gathering data on school-level student outcome indicators. Using axial and open coding, the analysis aims to develop rich descriptions that showcase characteristics of the schools to iteratively determine a theory of action that illustrates interconnections among context, design, implementation, and outcomes. Research findings will be communicated through a logic model and blueprint, school case study reports, and conference proceedings and publications that will be provided on a project website, providing an immediate and ongoing resource for education leaders, researchers and policymakers to learn about research on these schools and particular models. Findings will also be disseminated by more traditional means, such as papers in peer-reviewed journals and conference presentations, and webinars.